Study of Countable Convergence Conditions in Compact Spaces

DMS-0103985
Alan Dow

The Principle Investigator proposes to focus on three
central problems in set-theoretic topology which involve
basic countable convergence issues and set-theoretic
independence results. The first question, due to Efimov,
is to determine if it is consistent that any compact
space that does not contain a converging sequence will
contain the Stone-Cech compactification of the integers.
The second, due to Bashkirov, is to determine if there
can be a countable bound on the sequential order of a compact sequential space. This problem can, in some ways, be viewed
as a very interesting strengthening of the recently resolved Moore-Mrowka problem. The third is to continue a systematic
study of the Stone-Cech remainder of the reals analogous to
that which has long been conducted for the remainder of the
integers. There appears to be many obstructions to progess
caused by the additional complexity imposed by the connectedness property.

General questions of the existence of converging sequences
and the extent to which converging sequences fully determine
the topological structure arise frequently in a variety of
settings. These questions are particularly meaningful in the
context of compact subsets of function spaces (natural
informative topologies on sets of real-valued functions).
The investigator is continuing to pursue lines of investigation
that have stimulated intensive interaction between the fields
of general topology and set-theory for de